ABR: Refining and Broadening of a Method for Estimating Productivity of Coastal-Marine Eucaryotic Decomposer Microbes

The Pi of this project has devised a technique for estimating virtually the instantaneous rate of production for eucaryotic marine microbial organo-osmotrophs (eumycotic fungi), analogous to those previously available for procaryotic organo-osmotrophs. This method, which is in in the Journal ECOLOGY, represents a technological breakthrough; it promises to permit the first estimates of fungal productivity in ocean-edge ecosystems, the portion of the marine environment wherein fungi are likely to have their greatest impact on carbon flow, from vascular plants to marine food webs. The technique (abbreviated as Ac-ERG) involves measuring the incorporation of radio-labeled acetate into the (nearly) uniquely fungal sterol, ergosterol. The Ac-ERG technique is unseasoned; this project will polish it via experimentation with several of its facets, to learn its strengths and weaknesses and better define its inter-pretability and range of aptness. Two conspicuous limitations of the Ac-ERG technique are: 1) restriction to submerged samples (much of the decomposition of shoots of intertidal plants occurs while shoots are out of the water); 2) in-applicability for marine oomycotes (very common protoctistan decomposers of marine leaf litter; they do not synthesize ergosterol). This project will attempt to try to expand the utility of Ac-ERG technique by modifying it to remove these two constraints through: 1) presenting the radio-acetate to the sample in a volatilized state; 2) finding neutral lipids peculiar to oomycotes and following radio-acetate flow to them. The results of this research should be a more powerful, more durable, and better understood means of estimating marine eucaryotic organo-osmotrophic productivity.